Single-Molecule Studies of Protein Dynamics

*** 9513217 Nienhaus This research will develop an instrument that allows the study of protein dynamics over a wide range of times at the level of single molecules. The instrument is based on- photon excitation of florescence. To obtain the high spatio- temporal density of photons necessary for a high probability of two-photon absorption events, florescence excitation will be provided by focusing the 150 fs wide pulses of a femtosecond Ti:sapphire laser to a diffraction limited spot in an epi-illuminated microscope. The method promises an extremely good signal-to-noise ratio because the excitation light is well separated in wavelength from the emission of the florescent probes. Therefore, Rayleigh and Raman scattering can be efficiently suppressed. Detector noise will be further reduced by time gating. The instrument is sensitive to dynamic process with characteristic time scales ranging from nanoseconds to seconds and longer, which escape from the time window of conventional fluorescence spectroscopy. Processes that can be studied include rotational and translational diffusion, internal conformational relaxation of proteins, and molecular interactions. for example, protein aggregation and binding of small ligands. ***